Research for Reforming Education

9450522 Greeno This project studies ways in which research can play a more productive role in educational reform, particularly in mathematics at the Middle School Mathematics Project (MMAP) with interviews and other communication with researchers and developers who are engaged in efforts toward educational reform in mathematics. The study is based on the assumption that practice can be guided by knowledge of examples that is communicated as generalizable models. Generality is facilitated by analyses that identify the factors that are needed for models to succeed and that assist in applying models to local circumstances.